AMP: North Carolina Alliance for Minority Participation (NCAMP)

HRD-9702237 Martin Despite efforts aimed at amelioration, the nation's cadre of scientists and engineers continues to reflect an inadequate level of participation of underrepresented minorities. To some extent, this is a natural and inevitable consequence of individual choice, but several of the reasons for the lack of minority science, mathematics, engineering, and technology (SMET) majors are largely reversible. These include: (1) negative attitudes toward science and mathematics; (2) few or no role models; (3) lack of motivation; (4) little or no knowledge of scientific engineering career options open to them; (5) engineering's unexciting public image, and (6) a number of academic and cultural barriers that are particularly discouraging to minorities. Development of quality educational programs to attract and retain underrepresented minorities in SMET careers is a well-established national priority. This proposal describes a program designed to improve the educational framework for emerging minority scientists and engineers. The proposal focuses on undergraduate education as its core component as well as the essential elements required to increase the percentage of students in post-graduate SMET programs. The partners in the prmposed Alliance represent diverse programs, yet have remarkably common objectives. The unifying goal is to build on the existing knowledge base relative to minority participation in SMET fields and to expand the available opinions to enrich programs at partner institutions and beyond. North Carolina A&T State University (lead campus), Fayetteville Sate University, North Carolina Central University, North Carolina State University, the University of North Carolina-Pembroke, the University of North Carolina-Chapel Hill, the University of North Carolina-Charlotte, and the University of North Carolina-Greensboro join in this project to increase access and opportunities for minority students in SMET. The goals of the Alliance are: 1) to improve the quality of the learning environment for minority SMET students at all schools, 2) to substantially increase the numbers of minority students graduating with degrees in SMET disciplines, and 3) to develop and implement effective methods of attracting talented minority students who would not otherwise choose careers in SMET. The project emphasizes collaborative learning approaches, positive and sustained interaction with faculty, intensive interaction with other support persons, and hands-on research and internship experience. Using this philosophy, three project areas have been chosen as crucial focal points for achieving that qualitative and quantitative goals of the project. These project areas utilize strategies with demonstrable effectiveness in the retention of minority students in SMET. They also focus on innovative methods interesting community college students in SMET careers and concentrate on the transition point to graduate school. All project areas involve faculty and industry members in the design and implementation of improvements. In this program, assessment is built into each project areas as a result of the formulation of specific, measurable quantitative and qualitative objectives. These objectives are reviewed and revised on an ongoing basis. Advisory committees composed of administrative personnel from the eight universities oversee all aspects of the program. Communication and ongoing exchange of ideas among partner institutions and beyond the Alliance are primary objectives contributing towards the creation of permanent, positive changes in the infrastructure of education for minority students in SMET disciplines.